SHF: Small: Synthesizing Human-Readable Documentation

Developing and maintaining software is a key challenge in computer science,
with failures costing up to one half of one percent of the US GDP each
year. Most code is retained and evolved, rather than created from scratch,
and professional software developers spend over three-fourths of their time
trying to understand existing code. Understandability and documentation
have become key components of software quality, yet they remain poorly
understood by both researchers and practitioners. In a future where the
software engineering focus shifts from implementation to design and
composition concerns, program understandability will become even more
important. This research develops tools and techniques for mechanically
generating documentation to help make programs easier to understand.

The research follows the insight that modern analysis techniques can form
rich descriptive models of programs that are both precise and succinct.
Human-readable documentation can then be synthesized from such models.
The approach applies to large programs across multiple application domains.
The research focuses on documenting how code should be used correctly, a
critical aspect in an era of components-of-the-shelf development, as well
as documenting how code has changed and evolved over time, a key
part of software maintenance. The research leverages program analysis
techniques, machine learning, and textual synthesis, with results
disseminated through academic publication; the education, training and
mentoring of students; as well as freely-available, open-source tools.